Magnetic - Resonance Studies of Layered Films

9400553 Dunifer Technical abstract: Magnetic Resonance techniques will be used to investigate the electrical and magnetic properties of multilayered films consisting of alternating magnetic and nonmagnetic metals. The spin polarization of the conduction electrons in the nonmagnetic metal, induced by the adjacent ferromagnetic neighbors will be studied by microwave transmission spectroscopy (MTS), ferromagnetic resonance (FMR), and nuclear magnetic resonance (NMR) of the nuclei of the nonmagnetic metal. The influence of the induced spin polarization of the spacer metal on the magneto- optical Kerr effect (MOKE) of the films will also be studied. A comparison of the optical characteristics with those determined by magnetic resonance will assist in understanding the basic physical processes underlying the enhancement of the MOKE and in fabricating new materials with improved characteristics for data storage and magnetic sensors. Non-technical abstract: This project is a multidisciplinary investigation of the properties of materials used in devices such as read-write optical data storage disks, sensors, and magnetic memory. This technology has a major impact on the scientific advancement of computer technology and communication. A clear understanding of the mechanisms involved in enhancing the properties of data storage materials and devices is needed for US industries to remain competitive in this vital area. The project will investigate the fundamental mechanisms underlying the enhancement of magneto-optical storage and sensor devices. The materials to be investigated are multilayered films consisting of alternate layers of magnetic and non-magnetic metals. This investigation could enhance the ability to fabricate new materials with improved characteristics for the critical technological area of data storage devices. ***